The Molecular Basis of Bacterial Resistance to the Defensin Peptide Antibiotics

This project investigates the mechanism of bacterial resistance to defensin peptide antibiotics. The experimental approach includes biochemical studies on the interaction of defensins with phoP and phoP Salmonella. PhoP is a genetic regulatory locus that controls the expression of genes encoding factors that protect Salmonella from the bactericidal action of cationic proteins or peptides derived from neutrophils or macrophages. The defensins are cationic peptides that have antibacterial action. Transport studies with isotopically-labelled chloride are to be conducted with intact cells, membrane vesicle preparations and liposomes in order to ascertain what functional changes accompany the loss of phoP function in the presence and absence of defensins. PhoP-regulated constituents determining sensitivity to defensins are being characterized with the aid of transport assays to determine sensitivity to defensins as a prelude to characterizing and purifying these proteins. The project further involves the production and investigation of mutants that affect senitivity to defensins. Mammals are often able to fight off invading pathogens through the production of natural antibiotic agents, and some amphibians and insects also seem able to do this. Certain bacteria have evolved strategies to survive the antibiotic effects of these natural microbicidal agents, but how they do this is not currently known. Dr. Groisman's research provides fundamental information that is essential for understanding how bacteria are affected, or not affected, by antibiotics. This type of basic knowledge provides a foundation that may provide a basis for the development of improved antibiotics. This is an important goal because bacteria of the genus Salmonella currently cause a variety of disease conditions in animals and humans that are estimated to cost the U.S. national economy about fifty million dollars annually.